The Dynamics of Quantum Well Semiconductor Lasers

This work is to investigate the dynamics of quantum well and bulk semi-conductor lasers. We will study the issue related to the maximum achievable bandwidth and optimized noise characteristics. Critical damping which may place an upper limit on the modulation bandwidth of diode lasers will be studied in a variety of quantum well and bulk lasers. Quantum well devices to be studied include single and multi-longitudinal mode lasers with single and multiple quantum wells. For bulk lasers, we will use lasers with record breaking bandwidth (24 GHz). The work will focus on understanding the physical process (or processes) responsible for critical damping and in defining the design parameters for achieving high bandwidth and low noise operation. The question of whether quantum well lasers intrinsically have higher maximum bandwidth than bulk laser is to be answered. Our previous studies on intensity noise have resulted in the first understanding of the cause of low frequency noise in diode lasers. This knowledge will be used for studying noise translation including the effect of fiber dispersion will also be investigated. System implications will be explored.